RUI: Longevity of Tree-Species Effects on Soil Fertility and Sustainability of Second-Rotation Tropical Tree Plantations

Abstract

98-16006
Senock

RUI: Longevity of tree-species effects on soil fertility and sustainability of second-rotation tropical tree plantations

In the tropics, vast areas of land formerly used for agriculture are being planted with fast-growing plantations of trees. The productivity of forest plantations depends on soil fertility, which can change substantially under the influence of different tree species. This project will examine the sustained productivity of short-rotation woody crop landscapes in Hawaii, with a specific focus on second-rotation impacts of soil nutrients. The investigators plan a series of robust experimental tests of the lingering effects of first rotation species on nutrient cycles and productivity during subsequent rotation. In addition, the project will consider the potential roles that different species may play in fostering the re-establishment of native forest species. The research is a joint effort of the University of Hawaii at Hilo, an undergraduate Title III minority institution, Colorado State University and the USDA Forest Service. This project will bring ecological science into the development of a new curriculum in tropical forestry at the University of Hawaii at Hilo and has the potential to provide useful information for tropical forestry management.